CAREER: Transcending the Limits to ILP Processing

This project addresses three problems whose solutions are needed for the advancement of instruction-level parallelism. They are: a decentralized execution architecture to increase scalability; an instruction fetch mechanism that can accommodate control flow changes; and a dependency checking mechanism. Research will concentrate on the parallel execution window (PEW) model of execution, in which the window of instructions are generally allocated to the same execution window, so that parallel actions will usually be independent. This project will involve undergraduate and graduate students in the development of simuators and in their use in quantitative architectural comparisons.